Target Identification in a Model of Neuron Sprouting

This program is aimed at understanding how the central nervous system (CNS) responds to injury. In particular, a growth response is studied that involves the invasion of the hippocampal formation in the rat brain by axons that are normally restricted to blood vessels. This growth response occurs only when specific areas of the CNS are damaged and appears to be due to the presence of a neuronal growth factor similar in nature to the classical nerve growth factor (NGF). Since other axons do not grow in response to the damage, this neuronal rearrangement appears to be a specific response to injury of the CNS. To determine whether the growing axons come into direct contact with CNS neurons, the researchers are using electron microscopic techniques. Studies of the growth factor involve the use of tissue culture procedures that allow for the detection of small quantities of neuronal growth factors. These studies of neuronal growth following CNS injury should assist in unraveling the complex biological mechanisms that regulate the normal development of neuronal connections.